Postdoctoral Research Fellowship in Molecular Evolution

This project is an investigation of the genetic structure of life history variation among highly variable populations of the mountain dusky salamander that lives throughout the Appalachian Mountains. Within discrete mountain systems, strong predictable clines in a suite of life history traits are evident, and phenotypic patterns contrast with the geographic structure suggested by allozyme and ethological traits. The proposed work is to use mtDNA RFLPS as characters in phylogenetic reconstruction analyses to elucidate the genetic history of these populations. Knowledge of the genetic diversity of groups such as these may help in better management and conservation practices in the Southern Appalachians.